Floodplain Storage, Seasonal Mixing, and Flood-Quantile Estimation

Based on the PI's analysis of seasonal probability plots from 29 gages in Wisconsin, seasonal effects seem to be an important factor on flood frequency distributions by attenuating flood peaks. Thus, this project will focus on investigating and documenting the impacts of these seasonal effects, with some attention given to over-bank attenuation effects. Exploratory data analysis on flood series in drainage basins in Wisconsin and three adjacent states (Illinois, Iowa, and Minnesota) will be conducted to identify the basins in which floodplain effects are large. A physical model of flood hydraulics and hydrology will be used for better understanding the role of the seasonal effects.